Neutron Imaging System for Materials Characterization Research at the University of Texas Reactor

9503947 Abdurrahman A neutron imaging system (NIS) will be developed at the Nuclear Engineering Teaching Laboratory (NETL) of The University of Texas at Austin. The NIS consists of three subsystems: (1) Thomson neutron beam image intensifier tube sensitive to cold, thermal, and epithermal neutrons, (2) real time image processing unit consisting of vidicon camera, high resolution monitor, image enhancement and measurement processor, and printer, and (3) high performance workstation for image storage, computed tomography, and system control. The addition of the proposed NIS to NETL existing facilities will provide a powerful combination of capabilities to address a wide variety of problems important to materials research. The NIS is the key element in the development of neutron computed tomography (NCT) for materials characterization. Computed tomography refers to the cross-sectional imaging of an object interior from transmission data collected from many different directions. The significance of this research emanates from the growing need for nondestructive evaluation techniques with desirable properties that neutron-based methods provide, including high penetrability through metallic and highly dense materials, and the neutrons inherent sensitivity to elemental and isotopic variations of wide range of materials, sample sizes, and geometries. The ability of the NIS to provide 2-D scans will also facilitate the investigation and development of 3-D tomography. The combination of NCT and real time neutron imaging will open doors for new research in areas of materials characterization and advanced industrial processes, and will help promote and enhance collaboration with industry and researchers in the field. In addition, the NIS will be used in other research projects at NETL. A neutron focusing system has been developed for use with the Texas cold neutron source (TCNS). The NIS will facilitate the alignment of the focusing system and will allow the determination of detailed system performance. A prompt gamma activation analysis (PGAA) facility is also being developed for the TCNS. PGAA is a nondestructive analytical technique which is useful for major and minor elemental analysis of materials. The NIS will allow optimum positioning of individual samples for PGAA measurements and will permit the determination of neutron attenuation factors. The NIS will also be used as a spatial neutron detector for the small angle neutron scattering (SANS) instrument and reflectometer being developed. SANS is used for analysis of polymers, colloids, and ceramic precursors. Neutron reflectometry is used for analysis in surface chemistry studies and testing of thin films.